Control problems for systems of strongly coupled partial differential equations with variable coefficients.

In recent years, the emerging technology of smart materials and
structures has brought to the fore of scientific investigation the
pressing need to control, optimize, and stabilize dynamical
'interactive' structures, whose components' behavior is governed by
partial differential equations (PDEs). A canonical illustrative example
of keen national interest is the noise reduction problem in an acoustic
chamber (aircraft's or rotorcraft's cockpit or cabin, etc). This couples
the oscillatory behavior of the unwanted acoustic pressure (noise field)
within the chamber with the elastic vibrations of a flexible wall of the
chamber, possibly reinforced by sandwiched layers, and possibly
accounting for thermo-elastic effects. Pairwise sets of piezo-electric
patches bonded on the flexible wall, once suitably wired, develop an
elastic moment that is meant to dampen out the noise in the acoustic
chamber. Mathematically, the acoustic pressure is modeled by a second
order scalar hyperbolic equation (wave equation), while the flexible
wall is modeled by a plate-like Kirchhoff equation with or without
structural damping. In the first case, the plate has a parabolic
behavior, in the second a hyperbolic behavior, resulting therefore in
either hyperbolic/parabolic coupling, or in hyperbolic/hyperbolic
coupling of the overall structure. Two additional key, novel,
distinguishing features of the present project are: (i) first, the
linear or non-linear PDEs describing the coupled structure have variable
coefficients in space, which is always the case when the properties of
the medium depend from point to point; (ii) and, moreover, the flexible
wall may be curved (rather than flat), and thus modeled by a shell
(rather than a plate). Accordingly, differential geometric methods are
then proposed in the control theoretic analysis of the overall coupled
structure, to cope with these two serious difficulties. The goal is to
optimally control - according to a pre-assigned optimality criterion -
and asymptotically stabilize the coupled structure. The methodology of
this project consists in first establishing a mathematical theory, to be
followed next by a numerical analysis thereof, to yield effective and
computable algorithms.

Recent Federal research has convincingly demonstrated smart
materials/structures to be a laboratory reality. This is also confirmed
by a Workshop Report for the National Science Foundation entitled:
"Rebuilding and enhancing the Nation's infrastructures: a role for
intelligent material systems and structures", 1993. These new structural
concepts actively damp noise and vibration, suppress flutter at trailing
edges of airfoils and enable active twist/camber of both fixed wing and
rotorcraft; attenuate or suppress water borne signatures (active
acoustic signature control), etc. The transition of novel smart
structures into new, truly revolutionary platforms faces many obstacles.
The most significant is design optimization: both of the smart structure
and its communication and control systems. The present project aims at
producing a contribution in this area, based on solid mathematical
foundations and analysis.